CAREER: From Kinematics to Physics: A Global, Time-Dependent Investigation of Megathrust Frictional Locking

Large earthquakes and tsunamis generated at subduction zones, where one tectonic plate slides beneath another, pose serious risks to coastal communities worldwide. Accurately forecasting these hazards requires understanding how and where stress builds along these faults, yet the shallow offshore portions remain the most poorly understood. This project serves the national interest by delivering an improved physics-based framework of the geological features that make fault segments hazardous, and a new method for tracking how faults respond to stress changes, including slow earthquakes. The research program benefits society with an integrated educational plan to build strong computational skills for geoscientists through curriculum development including one new course, a summer workshop for undergraduates, and development of an interactive, online asynchronous course for broad accessibility.

Geodetic models of strain accumulation in subduction zones struggle to resolve fault behavior near the trench, a region critical for understanding shallow earthquake rupture and tsunami generation. While new seafloor geodesy provides key data, its targeted deployment requires an accurate physical understanding of fault slip and frictional processes that is currently lacking for this part of megathrusts. This project will advance our understanding of the physics of megathrust fault behavior in this critical offshore region. The project will achieve these goals by developing a systematic, uniform atlas of kinematic coupling across a globally distributed set of megathrusts. It will also produce time-dependent models to capture how coupling and locking evolve in response to stress changes due to slow slip events and earthquakes. The outcomes of this project will provide new knowledge regarding systematic variations in megathrust kinematic and frictional properties globally, allowing a better understanding of their underlying geologic causes and development of improved seismic and tsunami hazard models.